Collaborative Research: 1st Sino-USA Summer School in Vision, Learning, Pattern Recognition, VLPR 2009

NATIONAL SCIENCE FOUNDATION
Proposal Abstract

Proposal Title: Collaborative Research: 1st Sino-USA Summer School in Vision,
Learning, Pattern Recognition VLPR 2009
Institution: Princeton University
Abstract Date: 05/21/09

The 1st Sino-USA Summer School in Vision, Learning and Pattern Recognition
(VLPR2009) is the first NSF-sponsored summer school in China that brings together leading American and Chinese researchers and students in the field of computer vision and machine learning for a week of educational and cultural exchange program. The summer school will be held on the campus of Peking University in Beijing, China. This award will provide travel support for American researchers and students to attend the summer school. The summer school provides a forum for not only technical interactions but also culture exchanges among researchers and students from two countries.